PREMISE: Applying Decision Production Systems to Improve Environmentally Responsible Product Development

The objective of this research project is to understand how
product development organizations use environmental information in
their decision-making during the design of a new product. The research
views product development as an information flow governed by
decision-makers who must act under time and budget constraints. The
project will conduct an exploratory study to describe the flow of
information related to environmental decision-making in the product
development activities of an electronics manufacturing company. The
project will construct a long-term collaborative research agenda to
improve environmentally responsible product development, particularly
by integrating design decision support tools into other product
development activities.

If successful, this research will yield new models that guide the
development of powerful decision support tools (for specific decision-
makers) and the rational and systematic deployment of these tools across
the entire product development organization. Ultimately, this will reduce
the time and cost of environmentally responsible product development
across a range of industrial sectors. The research will benefit society
by helping manufacturing companies develop energy-efficient and
environmentally benign products.